Preschool Science and Math Resource Project

9453811 Henry The Please Touch Museum is requesting $684,602 for the development of educational resource materials in science and mathematics for four-year old children, and training for their parents and teachers in Head Start and other daycare programs. This 44 month project will develop, test, and produce six materials-based science and math activity kits, science training workshops for parents and daycare educators, and related family materials and events. It will culminate in a national dissemination program to promote more effective preschool science and math education through materials- based science inquiry and increased professional relations between educators in youth museums and daycare centers.